RUI: Experimental Studies of Chaotic Dynamics and Transport Processes in Plasmas Using Laser-Induced Fluorescence

This program involves a set of experiments to test the relationship between chaos and diffusion using the plasma state as a medium. Laser induced fluorescence is used to measure spatial ion diffusion, and the degree of chaos is quantified in terms of Lyopunov exponents. Different chaotic states are selected by varying the discharge parameters. The research is conducted by undergraduate students, and this multidisciplinary activity provides excellent training in experimental tools and methods used in the exploration of nonlinear dynamics. This award is made in connection with the NSF/DOE Partnership in Basic Plasma Science and Engineering.